Student Mentoring and Travel Support for the 5th International Conference on Ambulatory Monitoring of Physical Activity and Movement 2017

This project is to support doctoral student travel and participation for student travel support and participation in the 5th International Conference on Ambulatory Monitoring of Physical Activity and Movement 2017 (ICAMPAM) in Bethesda, MD from June 21-23, 2017. The ICAMPAM conference provides a supportive scientific forum for students focusing on computing, health informatics and engineering in the area of human activity monitoring. ICAMPAM provides a forum for expert and peer critique of students' research with the goal of improving their science. Student participants will also have the opportunity to receive networking support and career advice from internationally-recognized experts. Overall, the travel support brings together students with experts who might not otherwise engage with one another and engage in multidisciplinary targeting science the area of human activity monitoring.

This proposal supports doctoral students by providing a doctoral forum focused on encouraging students to learn from peers and experts from multiple perspectives to understand how innovative computing and informatics combine to make the most impact in the area of human activity monitoring. In addition, student participation in rapid talks and roundtable provided at the conference enables students to explore their science and see different career paths for researchers in this area. The ICAMPAM conference exposes participants to different scientific disciplinary approaches, supports networking with conference attendees and is designed to support the development of the next generation of scholars in this area and create a bridge between the scientific and health disciplines.